HPNC: University of Toledo Internet 2 Connection

This project will enable The University of Toledo to provide 45 Mbps connections to support faculty research, research collaboration, and collaboration for specific educational projects. The project provides needed bandwidth for seven applications needing to transfer large data sets, images, and video files. The projects are:

o X-ray Crystallography that provides UT chemists with access to national synchrotron laboratories and to other Ohio researchers involved in the Ohio Crystallography Consortium;
o Geographic Information Systems and Remote Sensing that provides access to OhioView and to other remote data centers;
o Internet-based Laboratories that provides high bandwidth, high fidelity connection to transfer data, control signals, audio, and video in real-time for Internet-based laboratory experiments;
o Astrophysical Data and Observations to access archived data and for remote observing and control;
o Computational Studies of G Protein-Coupled Receptors in a Lipid Bilayer to access the Ohio Supercomputer Center and other supercomputers;
o Speech-language Pathology to provide therapeutic services to distant or mobility impaired clients with language disorders; and
o Large Scale ATM and MLS Network Simulation to collaborate with the Ohio
Supercomputer Center on research issues related to simulation of large scale Multi-Protocol Label Switching networks.